Comparative Study of Phanerozoic Glaciations

Abstract ATM-9529109 Crowley, Thomas J. Texas A & M University Title: Comparative Study of Phanerozoic Glaciations In order to develop a proper understanding of glacial periods, it is necessary to examine in parallel all the well known glacial periods in Earth history. Because we are at different levels of understanding with respect to each of the four glacial periods of the last billion years, different problems have to be addressed foe each of the glacial periods. This award supports the examination of the following problems: (1) Pleistocene - effect of vegetation and aerosols on land-sea temperature differences during the last glacial maximum and modeling the penultimate glacial maximum; (2) Carboniferous - modeling the response to changes in orbital insolation forcing to determine whether there is an abrupt transition in the amount of simulated snowcover; (3) Ordovician -- modeling the effects of geography as the Gondwanan supercontinent migrates across the paleo South Pole; and (4) late Precambrian -- coupling an ice sheet model with a energy balance model to determine whether large decreases in solar luminosity can cause glaciation in low latitudes. These exercises will help clarify a number of important climate questions and ultimately help lead to development of an uniform theory for glacial periods in Early history.